CT-ER: Metamorphic Worm Detection

The proposed research will address an issue of substantial importance: how
to stop the rapid spread of malicious software that infects host
computers. The objective of this project is to develop fast methods of
analysis that accurately identify exploit code in network traffic. These
methods should succeed even if the exploit is concealed by means of code
obfuscation and metamorphosis (i.e., varying in form from one instance to
the next).

We statically analyze the control and data flow of code to characterize
the pattern of system calls executed by the code. Both large and small
exploit codes typically accomplish much of their function by such calls.
The use of code obfuscation techniques or metamorphic program
transformations will not in general change this pattern. We use weighted
matching to compute the degree of similarity between two code fragments,
based on their system call patterns.

The research project will include
* extensive evaluation of the initial method
* faster methods of control flow analysis and disassembly
* improvements in the accuracy of static data flow analysis
Other outcomes will include the development of a software implementation
of our detection method, and standard benchmarks for evaluating and
comparing such methods.

We propose to integrate this research with education of undergraduate and
graduate students about software vulnerabilities, and how to prevent or
remove them.